The Geochemistry of Terrestrial and Marine DOC in the Ocean

The proposed research combines laboratory and field investigations to examine the oceanographic processes responsible for the sources and sinks of DOC. A crucial problem with the marine DOC cycle is that the overwhelming input of riverine DOC, mostly in the form of dissolved humic substances (DHS), must be removed from seawater to be replaced with non-humic, non- biologically recognizable DOC from predominantly marine sources. However, the processes responsible for either the terrestrial sinks or the marine sources of DOC have not been identified. Major hypotheses to be tested are: 1) Photooxidation represents only the first step in a abiotic-biotic pathway which transforms allochthonous DHS into microbially labile step in a abiotic- biotic pathway which transforms allochthonous DHS into microbially labile macromolecules; 2) Photooxidation of marine detrital material modifies and photo-condenses biochemical components in marine POC into leachable, non-recognizable, microbially resistant DOC; and 3) Terrestrial and marine DOC can be selectively concentrated from seawater using physical/chemical separation techniques. To test these hypotheses, the approach will be to use laboratory photooxidation experiments together with microbial microcosm studies to investigate light-induced biological changes in DOC, and molecular and spectroscopic analyses to examine the chemical changes. In addition, molecular (biomarker) and isotopic analysis will be used to characterize the dissolved and colloidal organic matter in samples collected on transects across the Georgia shelf where there are both terrestrial (river and marsh) and marine sources. These results will constrain potential processes for input and removal of DOC from the ocean and define the distribution of marine and terrestrial organic matter in coastal waters.